Workshop: Grid Computing - The Next Decade

This award suppors the international travel of 10 US scientists to attend the Grid Computing - The Next Decade workshop that will be held in January 4-6, 2012, in Zakopane, Poland. This interdisciplinary, international workshop will discuss the state of the art of Grid computing, its applications and, more importantly, its future. The detailed results of the workshop will be published in the form of a report that will be made available to the public.